Yosemite Conference on Solar System Plasma Physics: Resolution of Processes in Space; Yosemite National Park,CA;February 2-5, 1993

This proposal is for partial support of a conference entitled, "Solar System Plasma Physics: Resolution of Processes in Space and Time." An equal amount of support is being requested from NASA. The support is for organization and clerical expenses, on- site logistical expenses, student travel grants and advertising costs. The purpose of the conference is to examine temporally and spatially varying phenomena within the solar-terrestrial environment and to discuss the current and future role of theory and experiment in resolving their important aspects.